Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

The Department of Mathematics at the University of Kansas will
purchase advanced graphics workstations and a parallel compute
server which will be dedicated to the support of research in the
mathematical sciences. The equipment will be used for several
research projects, including in particular:

Parallel eigenvalue computations. (Ralph Byers)

Higher dimensional immersive visualization of dynamical
systems. (Estella Gavosto)

Adaptive moving-mesh methods for numerical solution of
evolutionary partial differential equations and its
applications. (Wiezhang Huang)

Computation in commutative algebra and algebraic geometry.
(Craig Huneke)

Spectral analysis of biological nanostructures. (Rodolfo
Torres)